Innovation Connection for Precast Frames Using Debonded Tendons

Precast concrete frames using beam elements connected to multi-story column elements with post-tensioned prestressing tendons has been identified as an economically viable method of construction for tall buildings. Recent research has indicated that beam-column joint subassemblages using fully grouted tendons developed ductility comparable to monolithic reinforced concrete subassemblages designed to current specifications. But the tendons often suffer excessive stiffness degradation at low displacements after moderate ductility levels had been chieved. This was caused by a reduction of effective prestress clamping force through the column, resulting from inelastic strain of the prestressing tendon at the critical section. This project conducts a pilot study to experimentally verify a new concept for connecting precast seismic frames using unbonded prestressing tendons. The tendons will connect precast beam and column sections which allows a nonlinear elastic response and achieves a considerable displacement capacity. This capacity is free from problems associated with permanent deformation, thus enable the joint shear capacity to be enhanced without the need for extensive joint shear reinforcement. Two large scale test units representing an external and an internal connections respectively will be constructed and tested under cyclic lateral deformations using the existing pseudo-dynamic testing facility at University of California, San Diego. Conservative transverse reinforcement details will be chosen and heavily strain gauged. It is expected that recommendations for reduced reinforcement will be made and verification of the concept will be achieved from the experimental research. This project is supported under the provision of Small Grants for Exploratory Research (SGER) program.